Projects In Operator Algebra: Tensor Algebras, Coordinates, and Toeplitz Operators

ABSTRACT
DMS-0070405

Muhly will study a variety of problems in operator algebra that may be
divided into three groups: General Operator Algebras, Groupoids, and
Toeplitz and Related Operators. Under the first heading are found a number
of problems pertaining to the structure and representation theory of
non-self-adjoint operator algebras. The theory of these algebras has been
reinvigorated in recent years through advances in what has come to be known
as quantized functional analysis, i.e., the theory of operator spaces. This
subject coupled with the recent work of Muhly and Solel that identifies the
C*-envelopes of various very general operator algebras allows one to make
good progress on the program proposed more than thirty years ago by Wm.
Arveson as a generalization of the Sz.-Nagy - Foias model theory of
contraction operators on Hilbert space: study the representations of an
operator algebra in terms of the C*-representations of its C*-envelope. In
the area of groupoids, emphasis will be placed on the study of Fell bundles
over groupoids. The impetus for this study comes from the representation
theory of groupoids and from efforts to understand co-actions of groupoids.
Further, these bundles (more accurately, generalizations of them) occur in
the theory of product systems and the structure of non-self-adjoint operator
algebras just mentioned. Toeplitz operators have long been a subject of
intense interest in operator algebra/theory. In recent years Muhly and Xia
have identified the automorphisms of the C*-algebra generated by all
Toeplitz operators. The identification is described in terms of constructs
that have played important roles in function theory and harmonic analysis on
the disc. A particular importance is played by commutator singular
integrals. Muhly proposes to extend these results, to the extent possible,
to multivariable settings. Again, commutator singular integrals should play
a decisive role, but the jump to dimensions greater than one presents
difficult challenges.

Muhly's work on non-self-adjoint operator algebras, while inspired primarily
by developments in pure mathematics, has connections with problems of an
applied nature, most particularly, mathematical systems theory - the theory
of so-called H-infinity control. This, basically, is a body of knowledge
dedicated to the problem of building machines, such as cars and airplanes,
so that they meet certain performance criteria. Among these are such things
as the responsiveness of the steering wheel, in the case of cars, or the
rudder, in the case of airplanes. In short, Muhly's work will contribute to
theoretical underpinnings of design problems ensuring the safety of all
sorts of conveyances. Much of Muhly's work on tensor algebras over
C*-correspondences, which has been inspired by the operator theory that
underwrites this kind of control theory, seems to be usable in multivariable
control problems. Indeed, quite serendipitously, it appears to be
ready-made for multivariable problems. Muhly expects his research to
provide a theoretical underpinning of multivariable control problems that
here-to-fore have been handled by essentially ad hoc methods. Muhly's work
in non-self-adjoint algebras and the theory of groupoids has made unexpected
connections with quantum Markov processes - the theory of so-called open
systems that arise in a variety of places such as the theory of lasers and
materials science devoted to super conductivity. They also arise naturally
in quantum field theory through the constructs known as sectors. It is
anticipated that Muhly's work will help to provide the mathematical
underpinnings of quantum field theory and advances in laser and materials
science. Finally, Muhly's work on Toeplitz operators has made connections
with perturbation theories that arise in areas of relativistic quantum
theory and in quantum chemistry. It is anticipated that his projects on
higher dimensional Toeplitz operators will have an increased impact in this
arena.